Frontier Probability Days Conference

This award supports participation in the research conference "Frontier Probability Days" held at The University of Utah, May 9 - 11, 2016. The meeting brings together leading regional and national researchers, graduate students, and other scientists interested in probability theory and its applications, to stimulate research activity in this area and foster new interdisciplinary collaborations. A special feature of the conference is its attention to "applications of probability." Part of the intent of the meeting is to help broaden participation with other fields, a source of inspiration for both more applied and theoretical aspects of probability research. Much of the support in this award is allocated to travel support for students and early-career researchers, for whom the conference represents an excellent opportunity to stay informed of recent research progress and to initiate research collaborations.

This meeting is the fifth in a series that meets approximately every two years in the Intermountain West of the United States. The format consists of seven plenary talks and several shorter presentations. The plenary speakers represent a spectrum of leading work in both theoretical and applied probability. Roughly fifty non-local participants are expected to participate in the conference. Topics of interest include random matrices, disordered and interacting systems, stochastic analysis, and probabilistic applications to biology and dynamical systems. More details can be found at the conference web site:
http://www.math.utah.edu/~firas/FPD16/